East Coast Computer Algebra Day, Northeastern University, Boston, MA, May 3, l997

A one day meeting, called the East Coast Computer Algebra Day, will be held at Northeastern University, Boston, on Saturday, May 3, 1997. The purpose of this meeting is to stimulate interest in and enhance understanding of the technical aspects of computer algebra, by providing a way for those in the region who are active or interested in becoming more active in computer algebra to meet with each other in an inexpensive and easily accessible way. This meeting will be more informal than the annual ISSAC meetings, with ample time for unstructured interaction. Participation by the region's graduate students will be particularly encouraged through special invitation to contribute to the poster sessions, and through travel support. In addition, the offer to fund travel and hotel for graduate students makes this is an important opportunity to attract more women and minorities into the computer algebra community. For many professionals and graduate students on the East Coast, the current meeting represents the most accessible opportunity over two years to meet with a significant portion of the computer algebra community. Both ISSAC and IMACS (major computer algebra meetings) were held in Europe last year, and will be held in Hawaii in summer, 1997. Northeastern University is inside Boston itself, with excellent mass transportation, including subway connections to bus, train and plane. Three invited speakers will anchor the meeting and will help attract participants. The invited talks and poster sessions contributed by the community will cover the breadth of computer algebra: algorithms, software, and applications.